A Modern Teaching Telescope for a Campus Observatory

9452009 Romanishin An old (1930's vintage), hard-to-operate 10 inch Newtonian telescope will be replaced with a modern teaching telescope and electronic imaging camera. The new telescope will be used to enhance the teaching of astronomy and technology at both the introductory non-science major survey course and at the senior astronomy/astrophysics major level. The new electronic imaging camera will allow even non-science students to record simple observations that they can look at and manipulate using a computer. There is a new student computer lab in the Physics Department which will allow participation in these activities by all students. This equipment, although simple enough for introductory students to use under supervision, will be powerful enough that the junior/senior astronomy/astrophysics majors will be able to obtain data that they will be able to analyze in a more sophisticated manner, to illustrate important aspects of observational astronomy in a real "hands-on" approach not now possible.